Oceanographic Technical Services 2009 - 2011, R/V Melville, R/V Revelle, R/V New Horizon, R/V Sproul

Scripps Institution of Oceanography proposes to support technical services on four research vessels, all operated as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. Ships to be supported include R/V Revelle, R/V Melville, R/V New Horizon and R/V Sproul. As part of their basic operations they will provide one (Sproul, New Horizon) or two (Revelle, Melville) technicians on each seagoing research project to support basic services, including multibeam sonar operations, and they will maintain, calibrate and provide for qualified users items from their pool of shared-use research instrumentation. They also propose to provide several elements of specialized support for investigators, with separate charges. Specialized support requested for 2009 includes 1) reference quality hydrographic support, 2) seismic reflection profiling and related mitigation of impacts on marine mammals, 3) management of the service contract and maintenance for HiSeasNet (Internet connectivity at sea from research vessels) for UNOLS vessels using C-band or Ku-band service for 7x24 access to satellite-based ship-shore, and 4) support of CTD operations on USCG Healy. The budget in this proposal is for the first year of a 3-year continuing grant.